Electronic Structure of Conjugated Polymers

9530116 Soos This is a renewal grant co-funded by the Division of Materials Research and the Chemistry Division. Theoretical research will be conducted on the electronic properties of conjugated molecules and polymers including nonlinear optical response, efficient electroluminescence and high conduction on doping. The long-range goal of this research program is a unified, semiquantitative description of polymer excitations that parallels conjugated molecules, incorporates modern vibrational spectroscopy, combines nonlinear optical and linear spectra, and applies to both pi- and sigma-conjugated systems. Projects to be studied include: a joint approach to conjugated molecules and polymers; vibronic analysis of nonlinear optical and electroabsorption spectra; electron-phonon coupling and force-fields; and, charge transport in molecularly doped polymers. %%% Theoretical analysis will be done on the electronic and optical properties of polymers. These materials have unique properties and are amenable to processing such that materials can be designed to have specific properties. The research is supported by both the Divisions of Materials Research and Chemistry. ***